Characterization of Quartz Coarse Silt Using Laser Micro- probe and Objective Cathodoluminesence

The quartz sediment provided by various source rocks can be characterized on the basis of physical and chemical properties. Both have been used to evaluate the sources of quartz sand although the physical properties have been emphasized. Chemical properties have been used to characterize whole sediment samples (a mixture of sediment size and mineral composition) or multiple grains of a single mineral component but generally not for individual grains and specifically not for fine-grained quartz. Indirect chemical properties observed using subjective cathodoluminescence (CL) petrography is applied to individual sand grains, but generally not for the finer quartz grains. Quartz coarse silt is an important component of mudrocks. The purpose of this pilot study is to characterize attributes of quartz not previously determined on these fine particles. LAMMA laser microprobe and objective CL petrography will be used to document characteristics of quartz coarse silt liberated from various source rocks in a single drainage system. Quartz coarse silt will be collected from several first order streams each draining a single known source rock in the James River drainage basin. This quartz sediment from each source as well as the quartz in the source rock will be characterized using the two techniques. This quartz, thus fingerprinted, can then be attributed to specific source rocks. There are two immediate and major applications of this pilot study. First, demonstration of the ability of these techniques to identify source rock of quartz sediment will allow further studies to determine the dominant lithologies contributing silt to modern muddy environments, a topic presently debated but possibly not solvable with the commonly used tools at present. Second, because the characteristics analyzed by these techniques are not expected to be affected by diagenetic processes, they have the potential to evaluate the sources of silt in mudrocks if it can be shown that source rock types have unique and predictable characteristics.